Purchase of a Scientific Computer

The Convex C1 is a very fast state-of-the-art "mini-super computer" that utilizes a pipeline vector processor and a memory cache to achieve a high level of computational throughput. The C1 will allow the students and faculty to pursue a wider range of problems using the best of current methods and to complete the studies at a reasonable rate. This award from the Division of Materials Research and the Chemistry Shared Instrumentation Program will help the Departments of Chemistry and Physics of Wake Forest University purchase an upgrade of their Convex C1-XP computer. This upgrade will be used to study problems in the following areas: 1. Nonlinear condensed matter systems 2. Electronic structure calculations for solids and surfaces 3. Point defect structures 4. Parity violation and chirality in atoms and molecules 5. Deterministic and stochastic phenomena in non-equilibrium chemical systems. 6. Quantum chemical studies of short-lived and weakly bound molecular species.